Elementary Particle Theory and Quantum Field Theory

This grant in theoretical physics supports the research of Professors O.W. Greenberg and J.C. Pati at the University of Maryland. The work will address foundational issues in field theory (Greenberg) concerning the possible violation of Fermi-Bose statistics and the problem of color confinement and the important physical issue of the possible substructure of quarks and leptons (Pati).